SBIR Phase I: High Sensitivity, Tunable GaN/AlGaN Multiple Quantum Well UV Photodetectors

This Small Business Innovation Research (SBIR) Phase I project is directed toward the development of highly sensitive, solid-state, solar-blind photodiodes based on the group III-nitride material system, aluminum gallium nitride. Ultraviolet detectors are used in water treatment plants, automated arc-welding systems, and the monitoring of atmospheric ozone depletion. The objective of the proposed project is to develop tunable, high efficiency, Gallium Arsenide Nitride/ aluminum gallium nitride multiple quantum well UV photodiodes utilizing sequential resonant tunneling to enhance carrier collection efficiency and detector response time.

The multiple quantum well detectors will improve the characteristics of nitride detectors specifically in the solar blind wavelength region. Significant commercial interest has been expressed in this wavelength region for flame detection, ultraviolet photolithography, space and military applications include missile detection.